Coalescent processes and population models

The PI studies several problems related to coalescent
processes and population models. Coalescent processes
are stochastic processes that model a system of particles
which start out separated and merge into clusters as time
goes forward. These processes can be used to describe
the genealogy of a population because if one takes a
sample from a population and follows the ancestral lines
backwards in time, the ancestral lines will coalesce.
When a beneficial mutation occurs in a population and
spreads rapidly, many ancestral lines will merge at
almost the same time, as they will all be traced back to
the individual that had the beneficial mutation. One
goal is to use results from the theory of coalescent
processes with multiple mergers to get further insight
into tests that are used to detect beneficial mutations.
A second project is to determine the distribution of the
time that it takes for one individual in a population to
experience k mutations. The PI will also study a model
of coalescence in which the total mass of the system
increases over time. A coalescent model in which new
particles appear at rate one and clusters merge at a rate
proportional to the product of the masses has previously
been studied, but a qualitatively different phase
transition is conjectured to arise in an alternative
model in which clusters merge at a rate proportional to
the sum of the masses.

Stochastic models of coalescence have a wide range of
applications in other fields of science such as biology,
physical chemistry, and astronomy. Biologists interested
in understanding evolution are concerned with the merging
of the ancestral lines of a sample from a population. It
should be possible to use the mathematical theory of
coalescence to gain further insight into how beneficial
mutations impact this process. The project of determining
the amount of time for one individual in a population to
experience several mutations is motivated by simple models
of cancer, in which it is assumed that a cell becomes
cancerous only after several harmful mutations take place.
The study of coalescent processes in which the mass of the
system increases over time is motivated by recent interest
in randomly growing networks.